Theory of Chemical Dynamics

William Miller, University of California Berkeley, is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research on the theory of chemical dynamics. The goal of Miller's research is to develop the theoretical concepts and methodologies that can provide a quantitative description of chemical dynamics, a kind of ab initio chemical dynamics akin to the ab initio quantum chemistry of electronic structure theory. Challenging and novel applications of these approaches to specific chemical systems will also be carried out when they illustrate or demonstrate the new methods and concepts or when the specific application is of importance in its own right. The primary focus is on the dynamics of chemical reactions, but other dynamical processes are also treatable by these approaches. The proposed research deals with both the most detailed level of description (state-to-state reactive cross sections) and also more averaged quantities (cumulative reaction probabilities and rate constants). Methods are proposed for providing an absolutely rigorous treatment of simple chemical reactions, and approximate methods for describing more complex chemical systems, for which completely rigorous calculations are not feasible, are also pursued. Miller's research is directed at the most fundamental level of chemistry, i.e., the chemical reaction taking place in the gas phase between two colliding molecules. This very basic, yet highly complex, process is the simplest chemical reaction to which theory can be rigorously applied, and forms the basis for understanding all other more complex chemical processes.